RIA: Multivariate Decision Trees via Optimization

9409427 Bennett This research examines multivariate decision tree induction as a mathematical program solved in serial or parallel. Depending on the splitting criterion or objective function minimized, the problem of constructing each decision node in the tree is a linear, piecewise-quadratic, bilinear, or multilinear program. Unlike previous perceptron-type and randomized algorithms, the proposed mathematical programs exactly characterize an optimal solution of the decision node problem. A new splitting criterion, subtree optimization, is proposed. Subtree optimization differs from previous greedy decision tree algorithms in that it explicitly considers all subsequent decisions when constructing the current decision node. Subtree optimization can be used to generate a globally optimal tree with a fixed topology. The goals of this work are to create better decision tree algorithms, gain a better mathematical understanding of the bias of splitting criteria, develop new mathematical programming theory and techniques for solving these problems, and implement and test these algorithms on serial and parallel computers.